Enriched Modeling of Auctions and Bidding

9309333 Rothkopf Standard models of auctions need enrichment in order to be applied in realistic contexts. Many common but neglected factors invalidate prescriptions of auction theory and alter the evaluation of the economic performance of auction markets. This research augments bidding theory in some realistic directions and explicates the divergence between theoretical predictions and long-standing practices in many auction markets. One thrust of the research will examine information transmission from bidders to auctioneer during the course of an English auction, and how the extent of the interception of this information by rival bidders affects strategies and equilibrium outcomes. A second effort will incorporate explicitly several realistic aspects of cheating and rule bending in auction models. A third effort introduces serious study of the incentives in franchise bidding for management of natural resources. The sum of these efforts is intended to play a key role in enhancing the understanding of actual choices under market exchange rules and bidding strategies. ***